Collaborative Research: Morphological, Chemical, Optical and Radiative Properties of Multi-Component Aerosol in the Aerosol Characterization Experiment (ACE)-Asia Region

This project represents a collaboration between Barry Huebert, University of Hawaii (ATM-0002604), Richard Arimoto, New Mexico State University (ATM-0002599), and Irina Sokolik, University of Colorado (ATM-0002746) and is part of the ACE-Asia Project (Aerosol Characterization Experiment). Coordinated measurements of aerosol chemical properties will be carried out by Dr. Huebert and Dr. Arimoto. Other collaborators, supported separately, will provide measurements of aerosol optical properties and radiation (Michael Bergin, Georgia Tech) and single-particle analysis (James Anderson, Arizona State University). The measurements will be carried out at Zhenbeitai, a site near Yulin, Shaanxi Province, China. This site was chosen to represent the dust source regions of China. Detailed in-situ characterization of the aerosols found there will provide important information for the interpretation of measurements of aerosol properties in the airborne intensive of ACE-Asia downwind of the Asian continent. Dr. Sokolik will provide numerical analyses aimed at quantifying the radiative forcing by Asian multicomponent aerosols and their impacts on climate.